Collaborative Research: Bacterial cell surface amine binding sites: The overlooked controllers of the bioavailability and environmental fate of aqueous anions and metalloids

Although bacteria can control the fate and mobility of a range of ground and surface water pollutants such as arsenic and chromium that are present in solution as anions, it is not known how these negatively-charged solutes bind onto negatively-charged bacterial cells. Bacterial amine binding sites, which can be positively-charged, may control the adsorption and bioavailability of these anions. This research will quantify the concentration of amine sites on bacterial surfaces, and determine the role of amine sites in the bacterial adsorption of anionic metals and molecules. The results of the research not only will improve understanding of the controls on the environmental behavior of anionic pollutants, but could enable the use of bacteria to remove anionic pollutants from contaminated waters.

The research involves (1) innovative potentiometric titration and (2) adsorption and X-ray absorption spectroscopy experiments conducted with and without an amine-specific blocking molecule to measure the concentration of amine sites on bacterial cells and to determine the importance of these sites in the adsorption and bioavailability of a range of anionic solutes. The research aims to unequivocally determine the adsorption mechanisms for anionic solutes onto bacteria and therefore has the potential to transform understanding of the role of amine site binding on the environmental speciation and behavior of anionic solutes such as metals, metalloids, sulfate, and nitrate.